The Phylogenetic Relationships of the Sauropterygia (Reptilia: Diapsida)

This research is being conducted by Dr. Olivier Rieppel, a vertebrate paleontologist from the Chicago Field Museum of Natural History. Dr. Rieppel is examining the Sauropterygia, an extinct group of diapsid reptiles. The research focuses on variation in a host of anatomical features, with a primary emphasis on understanding the relationships among sauropterygian groups. The derivation of these relationships are essential to understanding diversification in more modern diapsids. Another important aspect of this research is that changes in the limbs of aquatic reptiles can be used as a model for studying patterns of developmental rates, especially as they relate to changes in the vertebrate skeleton. The relationships derived from this study will provide the necessary interpretive framework for assessing these developmental processes.